Prairie Analysis Seminar 2004

Prairie Analysis Seminar 2004

The PIs propose to continue with the Prairie Analysis Seminar, an
ongoing joint project of the University of Kansas and Kansas State
University. The seminar already had three previous successful editions
in 2001, 2002, and 2003. The scientific activities taking place at the
seminar are extremely stimulating and will certain generate further
advances in mathematical research in harmonic analysis and related
areas. The next meeting will be held in November 2004 in Lawrence. The
main speaker is Stephen Waniger. He will lecture about discrete
problems in harmonic analysis. These are problems whose solution
require the use of methods from analytic number theory and relate to
the study of operators acting on functions defined on the n-dimensional
integers or discrete subgroups of homogeneous groups. The other two
invited speakers will be Loukas Grafakos who will describe results
about maximal multipliers and Akos Magyar who will present some Ramsey
type results on lattice points. All the topics are of current interest
in harmonic analysis and address important difficult problems in the
area.

This annual conference is of extreme importance in the geographical
area and it is quickly becoming a tradition with national and even
international reputation. The seminar is structured so as to keep costs
for the host university and participants to a minimum, allowing a wide
range of mathematicians to attend. The main speakers chosen are at the
forefront of their field, giving all in attendance the opportunity to
learn of their recent work. Equally important is that the conference
will allow the participating graduate and postdoctoral students to give
contributed talks, thus increasing their visibility and awareness of
their work in the mathematical community. This is of crucial relevance
in the education of graduate students as well as for those who have
recently obtained their Ph.D. The first three editions of the
conference attracted a number of researchers from small universities
throughout the region, in addition to those attending from major
research institutions. A number of participants are faculty from small
universities and colleges in the geographical area. Many of these
faculty maintain research careers in spite of geographical isolation
and welcome the rare opportunity to meet with other mathematicians.
Strong connections with these small universities and colleges are
mutually beneficial, as these schools produce many excellent
undergraduate students that can be attracted to graduate education in
mathematics and sciences.